Research Experiences for Undergraduates in Chemistry at Florida State University

Professor Edwin F. Hilinski and other members of the Chemistry Department of Florida State University are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend ten (10) or twelve (12) weeks each summer actively engaged in a variety of research projects. Projects range from studies of adsorption in aquatic sediments to investigation of performance characteristics of polymers. Students will begin their summer laboratory experience with a safety orientation. Weekly seminars and interaction with faculty mentors are designed to encourage students in research careers.